Gordon Research Conference on Electrochemistry

This award in the Analytical and Surface Chemistry Program of the Chemistry Division provides partial support for the 1995 Gordon Research Conference on Electrochemistry. This conference, which brings together leading electrochemists world-wide, will address the role of basic electrochemical sciences in various aspects of environmental chemistry including remediation, mitigation and prevention. Through this grant, support is provided to enable ten young faculty, postdoctorals, and graduate students, who might not otherwise be able to participate in this conference, to present their research results at this meeting and engage in interactive dialogue with leading senior colleagues in the field. Broader applications of electrochemical techniques to environmental problems could result in important advances in this strategically important area.